Little Priest Tribal College TCUP Planning

With NSF support, Little Priest Tribal College (LPTC) will conduct an assessment of the institution's science and mathematics curriculum and infrastructure. Project activities include evaluations of science and mathematics course content, teaching strategies, use of technology for teaching and learning, undergraduate and faculty research opportunities, student progress, and S&E programming. An external advisory committee with representation from four-year institutions will assist College science and mathematics faculty in the development of an institutional plan to strengthen S&E teaching and learning. In addition, the College will develop a tracking system to assess the progress of the Colleges' science and mathematics graduates that transfer to 4-year colleges and universities.